Biological Control of Phosphorus Cycling in a Temperate Deciduous Forest Ecosystem

Biological recycling of phosphorus (P) in surficial organic horizons has been suggested as an important mechanism maintaining soil P availability in some tropical forests. A similar mechanism has been proposed for some temperate forests, but no direct evidence has been gathered with respect to this surmise. More recent studies suggest that high densities of microorganisms in tropical forest floors may actually inhibit plant uptake, and that P might be particularly susceptible to leaching in organic form. Preliminary investigations at the Coweeta Hydrologic Laboratory in North Carolina have shown strong geochemical P adsorption in all mineral soil horizons and the importance of microbial immobilization in the forest floor, suggesting that forest floor organic matter also inhibits geochemical adsorption. Collectively, these data strongly suggest that tight biological control of P cycling in the forest may contribute significantly in maintaining long-term P availability in these southern Appalachian forests. Research sponsored by a two-year postdoctoral fellowship award will allow tests of the "biological control" hypothesis by means of a series of laboratory and field radiotracer experiments. Specific objectives are to determine the relative importance of microbial immobilization, plant/mycorrhizal uptake, and mineral adsorption in controlling P dynamics in forest floor and mineral horizons of a temperate deciduous forest soil, and to examine vertical movement of organic and inorganic P. The Fellow's host institution for the study is Duke University.